Field to Finish Surveying Instrumentation

The "field to Finish" surveying equipment acquired in this project completes the integrated system needed to teach engineering students state-of-the-art data collection, processing, computing, design and plotting practices that they will encounter in professional employment. Through the planned curricula changes the concepts of automation in data collection, computer-aided design and drafting are introduced into civil and surveying engineering. Modern engineering practice requires that graduates have knowledge of modern data collection and design techniques. The project goal is to produce professional engineers and land surveyors with "hands-on" experience. The award is being matched by an equal amount from the principal investigator's institution.